Detector Development for a Wide-Field Infrared Survey Capability for Magellan

AST-0138278
Persson, Sven E.

The technical development and acquisition of six 2048x2048 HAWAII-2RG detectors for the Carnegie's DEEPSIX instrument to be used at Las Campanas will be completed. This is a large format near infrared camera for the F5.4 focus of the Magellan II 6.5 meter telescope. A significant fraction of the observing time is dedicated to large area deep surveys, including a number of programs carried out in concert with the National Optical Astronomy Observatory. A broad cross-section of the US community of astronomers will be engaged with this work.
***